U.S.-Japan Joint Seminar: Earthquake Resistant Design of Reinforced Concrete Beam-Column Joints/May 1989/Honolulu, HI

This award will support a seminar, "Earthquake Resistant Design of Reinforced Concrete Beam-Column Joints," organized jointly by Prof. James O. Jirsa of the University of Texas, Austin, and Prof. Hiroyuki Aoyama of the University of Tokyo, Japan. Participants will meet in Honolulu, Hawaii, from May 24 to 26, 1989, to report results of research programs under way in both the U.S. and Japan, and to discuss the implications of those results to the design of structures. In this meeting structure designers have been invited in addition to pure earthquake researchers, in order to facilitate rapid transfer of conclusions into practice, and to assist in the evaluation of research data. The seminar will bring together researchers in the field from the U.S. and Japan, with some observers from both countries and from New Zealand. Thus, continuity with several earlier joint seminars involving participants from those countries with the strongest efforts in the field, viz. the U.S., Japan, and New Zealand, is assured. This seminar will concentrate on the previously little-con- sidered problem of beam-to-column connections, and will be important, therefore, in assisting the rapid development and utilization of techniques for earthquake resistant, reinforced-concrete construction.